Numerical MHD Investigations of the Dynamical Correspondence of CMEs, Flares, Prominences, and Associated MHD Waves

Abstract: ATM 00-70385

Proposal Title: Numerical MHD Investigations of the Dynamical Correspondence of CMEs, Flares, Prominences and Associated MHD Waves

Principal Investigator: S. T. Wu, University of Alabama, Huntsville

The investigators will work to understand several large scale features of the solar corona, including bi-modal magnetic fields, solar wind structure, and the interplay between coronal mass ejections (CME), solar prominences and solar flares. The main effort is to employ two-dimensional (2D) axisymmetric and three-dimensional (3D) magnetohydrodynamic (MHD) numerical codes to model these observed features of coronal activity. One unique aspect of the work is the approach adopted by the investigators to the interplay between various mesoscale and large-scale features of the corona. Specific topics of the research include CME dynamics in a bi-modal wind and study of Moreton waves as an interaction between coronal activity and the denser chromosphere beneath.